Numerical Solution of Least Squares Eigenvalue Problems

This project addresses a number of open questions concerning the accurate solution of least squares and eigenvalue problems. These two problem areas are interrelated, but there are separate issues for each one of them. For the work on least squares problems, there remain important issues in both the analysis and implementation of the algorithms. Both direct and iterative methods for the solution of equality constrained least squares problems will be considered. The work on direct methods concerns error analysis and implementation issues for sparse problems and for message passing architectures. The effort on iterative methods concerns the development of a class of preconditioners that would work well on constrained least squares problems. The investigation of the eigenvalue problems is based upon theoretical questions. Recently perturbation bounds on the relative errors in the eigenvalues of a certain class of symmetric diagonally dominant matrices have been developed. It has been shown that some algorithms achieve these bounds. For one important class of algorithms, divide-and-conquer algorithms, it is not known whether the relative error bounds can be achieved. Since this class of algorithms has shown good performance on several distributed memory architectures, the resolution of this open question will have a significant impact on how eigenvalue problems are solved.